The Math Gateway

In this project the Mathematical Association of America (MAA) is building on the foundation of the current Mathematical Sciences Digital Library (MathDL) and assuming stewardship for significant mathematical content and services of particular importance to accessing and using educational resources for the mathematical sciences. Through the Math Gateway learners of mathematics gain access to the rich content in sites partnering with the MAA, and representing some of the earliest and most important projects within the NSDL program. Supporting services are also available through the Gateway for end users, content developers, and the participating organizations. In making available to the general user of mathematics the rich array of digital library collections and services now on the Web and encouraging the development of new materials and services, this project is advancing two central goals of NSDL. The project is also expanding the features of MathDL that are of particular importance to the members of the Association, thus anticipating a potential strategy for sustainability. These features include MAA Reviews, an online continuation of the current Telegraphic Reviews appearing in the American Mathematical Monthly, and online access to the best of one hundred eleven years of Classroom Capsules.